TRAVEL PROPOSAL: STUDENT PROGRAM OF THE FIFTH CONFERENCE ON AI, ETHICS AND SOCIETY (AIES 2022)

This grant supports to student travel for select students participating in the student program at the 5th Conference on AI, Ethics, and Society (AIES) that will be held in August, 2022 in Oxford, UK. AIES is an up and coming international conference for researchers that investigate that impact that artificial intelligence has at various levels of society. This activity will bring together a broad community of researchers in this important field and supports junior researchers at this critical early-career stage. The student program creates the opportunity to bring in participants who might not have attended an AI conference due to lack of resources. This is especially true for those at smaller institutions and those which have less developed AI programs. Engaging such participants has the potential to draw more talent into AI research, improve research ideas in their formative stage, and engender collaborations across the breadth of disciplines. This event provides students with invaluable exposure to outside perspectives on their work at a critical time in their research and enables them to explore their career objectives.